Teacher Participation in the 2nd International Conference onSchool and Popular Meteorological Education

This project provides for the participation of 100 grade K-12 teachers of earth, oceanographic, and atmospheric sciences in the Second International Conference on School and Meteorological Education. The three-day conference to be held in the Washington, DC, area in July 1989, is hosted and organized by the American Meteorological Society (AMS), with the co-sponsorship of the Royal Meteorological Society (RMS) and the World Meteorological Organization (WMO). Teachers targeted for selection are those who have demonstrated abilities to successfullly incorporate the study of meteorology and/or oceanography into their classroom programs, and to communicate noteworthy practices to other teachers. Participation in the Conference will afford these leader-teachers the opportunity to interact with teachers, researchers and other discipline professionals from all over the world, including representatives from the ten international training centers of the WMO. The U.S. teachers will take part in workshops, poster sessions, invited state-of-the art lecture presentations, "hands-on" laboratory activities, structured discussion sessions, as well as informal exchanges with a full cross-section of the attendees. Participants will produce written plans on how the content, materials, and techniques presented at the Conference will be implemented in their classrooms and in required in-service training sessions for other teachers. Each participant will receive copies of the Conference proceedings, which by design will also serve as a teacher reference for integrating weather- and ocean-related topics into the classroom. As a result of the conference, the participants will form a cadre of leader-teachers in the atmospheric and oceanographic sciences to network not only among themselves but to additionally link with the professional organizations of practitioners in these fields. The AMS is poised to provide leadership from its members in this educational effort in which the Conference is expected to serve as a catalyst. SEE Directorate funding is entirely for direct participant support and selection. The GEO Directorate contribution to costs of advertising, printing, and clerical assistance amounts to 14.5% of the total recommended grant. No indirect costs are included in the grant; all other administrative costs are borne by the AMS.